Planning Future Directions in SE & AI

The grant funds travel to a meeting of Software Engineering (SE) and Artificial Intelligence (AI) researchers to promote synergies between the two fields. Advances in several AI areas, such as data mining, natural language understanding and constraint solving, have become ready for application in many domains, including SE. SE as an area for AI -- automating the activities of programmers -- is still a long-term vision for AI. SE goals, such as component-based, evolvable software containing valid world models and correct code, are important to AI as they are to other fields. The workshop will explore synergies between the fields and serve as a planning meeting for future interactions.